Subpicosecond Resolution Studies of Internal Motions in Proteins

A direct connection will be made between ultrafast time resolved measurements of the internal motions of proteins and calculations of protein motion based on molecular dynamics. The experiments will use both absorption and emission anisotropy techniques to study orientational correction functions and order parameters. The aim is to provide a definite set of measurements against which to match current simulation techniques and assess the adequacy of the potential model. In addition, complementary simulations of carefully chosen proteins including solvent will be carried out. The internal motions of protein molecules have generated much interest in recent years because of their possible significance in protein function. A variety of techniques for the study of protein dynamics have been developed. Improvements in time resolved spectroscopy and computers are extending the time scale of both experiment and simulation so that it is beginning to be possible to make direct comparisions. The major aim of Dr. Fleming's research is to make these comparisions in as clear and direct a way as possible.//